Development Site for Complex, Technology-Based Problems in Calculus

9352849 Winkel Faculty and students at Rose-Hulman Institute of Technology in cooperation with several high school teachers are developing and disseminating complex problems in calculus. These calculus problems are based on applications in science and engineering and offer an opportunity to use computers as part of the problem-solving strategy. These technology-based problems are interdisciplinary in nature and integrate concepts from calculus, engineering, and physics. During the academic year, faculty are locating resources and developing significant problems, testing them in courses, summarizing student reactions and solution strategies, and modifying and extending problems. Student developers are assisting in evaluating solutions submitted by student solvers, assessing prerequisite knowledge needed for attempting these problems, and determining the level of effort and time needed for success. In the summer, teams of faculty, students, and associate high school mathematics teachers are developing new problems, polishing established problems, preparing standard formats for problem presentation, loading the materials for electronic access through anonymous "ftp" site facilities (Bitnet and Internet) at Rose- Hulman, producing Mathematica resources to accompany problems, and writing up guidelines for using problems in high school and college calculus settings. Suggestions for non-Mathematica users are being offered in each situation as well as guides on how to use the materials. About 50 problem sets are being developed. Faculty from Rose-Hulman are conducting short courses in problem use and development at local, regional, and national meetings.